Doctoral Dissertation Research: Legitimacy and Compliance in Bargaining Negotiations

This is a an award under the Grants for Improving Doctoral Dissertation Research Program. This study will test the effect of legitimacy in encouraging compliance based on three possible ways legitimacy may be acquired by those wielding power. Theoretical issues relate to legitimacy, power, and decision making. Data come from a series of laboratory experiments. %%% This research will contribute to sociological understanding of power, authority, and influence processes. In addition to the scientific gains to be achieved by the research, this award will materially assist a highly promising student in completing research for the Ph.D. dissertation. Thus it contributes to the future scientific manpower of the national and the thorough training of the next generation of social scientists.